Ergodic Properties of Nonuniformly Hyperbolic Systems

Proposal Number: DMS-0202999
PI: Huyi Hu

ABSTRACT

This project is devoted to the study of ergodic properties of
nonuniformly hyperbolic systems. We focus on almost
hyperbolic systems and some related systems. An smooth dynamical
system is almost hyperbolic if it is hyperbolic everywhere except
at a finite set of points. Such systems may have quite different
ergodic behaviors from uniformly hyperbolic systems.
In this project we will study existence of equilibrium states,
including SRB measures and absolutely continuous invariant
measures in multidimensional spaces; rates of convergence to the
equilibrium states for both finite and infinite measure cases,
and some related topics such as rates of decay of correlations of
the systems and the central limit theorem; some other ergodic
properties of the systems such as stochastic stability, Gibbs
properties, topological conjugation. We are also interested in
using these or similar systems to construct varies examples of
systems that have given properties, for instance, diffeomorphisms
or flows on any manifolds that preserve the Riemannian
volume, have nonzero Lyapunov exponents almost everywhere, and
have countably many ergodic components.

Ergodic theory concerns the statistic behavior of systems.
Ergodic properties of uniformly hyperbolic systems were the main
research subject in smooth dynamical systems from 60's to 80's.
The behaviors of such systems are regarded as chaotic.
Now nonuniformly hyperbolic systems become a main research topic
in the field. This project is devoted to the study of ergodic
properties of almost hyperbolic systems and some other related
systems. Almost hyperbolic systems are smooth dynamical systems
in which hyperbolic conditions are violated at only finitely
number of points. These systems lie on the boundary of the set
of uniformly hyperbolic systems, and are the simplest but
nontrivial nonuniformly hyperbolic systems. Earlier studies on
examples of such systems, such as systems on the intervals and
torus, show that some ergodic properties may change dramatically.
In this project we try to develop some theorems for general
almost hyperbolic systems rather than individual examples.